Mathematical Models For Processes in Bacterial Cell Division

Drew
0214585
The investigator derives and studies mathematical models for
several different processes involved with cell division, focusing
on E. coli cells because of the wealth of data available. A
mature cell replicates its DNA. The daughter DNA strands must
move into the halves of the mature cell, and finally, the cell
divides. The relative timing of these events is crucial for the
division into viable daughter cells, and placement of the septum
must divide the cell and its DNA into relatively equal halves.
Once replication begins,the cell then must become unable to start
replication again until the cell is sufficiently mature.
Sequestration is responsible for this eclipse period, where the
new DNA strand binds to sites in the membrane, thereby blocking
the oriC site and dnaA transcription regulation site, keeping the
replication initiation from occurring too soon. This process of
sequestration and de-sequestration is therefore (at least
partially) responsible for the timing of cell division events.
The mathematical model predicts the probability of each of the
sequestration sites being sequestered, as a function of time. The
replicated DNA strands are moved apart in the longitudinal
direction (towards the cell poles) in order to assure exactly one
set of chromosomes in each daughter cell. The process by which
this occurs is unknown, but the timing of this event is crucial
to viability. The project studies viable models for this
seqregation. The site for septation is marked by formation of a
Z-ring at the center of the rod-shaped cell, halfway between the
poles. This Z-ring is involved in causing the cell to form a
septum between the daughter halves. Placement of the Z-ring at
the center is a result of the cooperative actions of three
proteins from the min locus of the DNA. Three proteins behave in
an oscillatory manner, with MinD alternately forming a layer on
the cell membrane near one pole, then disassembling and
re-forming at the other pole. The investigator studies a model
for the dynamics of the Min system.
The investigaor develops mathematical models to improve the
understanding of the biology of cell division in E. coli. The
basic philosophy is to determine mechanisms that can describe
observed events, and to evaluate whether these mechanisms can
operate for reasonable parameter values, that is, whether the
kinetic rates, diffusivities, and concentrations are within
reasonable ranges of observed values. Location and timing of
cellular events is an important aspect of molecular biology.
Moreover, mathematical models that incorporate intracellular
transport and reactions, including reactions with organelles,
should prove to be of general applicability to cellular biology.
Such models can focus biological research on aspects of molecular
dynamics that otherwise seem unconnected.